Prediction of Field Collapse of Soils

The purpose of the project is to develop a down-hole in-situ loading plate test under various wet conditions, which will provide data that can be used to anticipate settlement damage to structures resting on collapsible soils; and the development of a simplified analysis technique which can be used efficiently by practicing engineers. The workplan includes: 1) development of hardware; 2) development of testing procedures; 3) development of procedures for extrapolating the test data to the prototype; and 4) checking the system by applying it to a medium-scale field test.